Special Project: Travel Support to Attend the Grace Hopper Celebration of Women in Computing Conference, Washington, D.C., June 9-11, 1994

9401674 Borg This award to the Computing Research Association (CRA) provides funds to support fifty individuals to attend the Grace Murray Hopper Celebration of Women in Computing (GMHC). The GMHC is a technical conference addressing women's successes and achievements in the computing field. It will be held in Washington, D.C. on June 9 11, 1994. The CRA is an association of U.S. and Canadian academic departments of Computer Science and Computer Engineering, and Industrial Laboratories engaging in basic computing research. The mission of CRA is to represent and inform the computing research community and to support and promote its interests. Dr. Weingarten is the Executive Director of CRA. Dr. Anita Borg is a consultant engineer in the Network Systems Laboratory at Digital Equipment Corporation. ***